Establish NSF number for Support Argreement for FB2507-04183-0105

The Arctic Research Support and Logistics program provides support in Greenland for science programs funded by the Division of Arctic Sciences, as well as various other NSF Divisions and other Government agencies. This award provides funds for the research support provided in Thule, Greenland by 821 Air Base Group of the U.S. Air Force.